Seismic Velocities under Dynamic Pressure via Stimulated Brillouin Scattering

This award will provide two-thirds funding for the development of a stimulated Brillouin scattering instrumentation system that will use dynamic shock compression techniques to measure compressional and shear wave seismic velocities in minerals of the Earth's mantle under mantle conditions of temperature (up to 3500K) and pressure (up to 130 GPa). The instrument system is to be developed in the shock pressure laboratory in the Division of Geological and Planetary Sciences at the California Institute of Technology. Caltech is committed to providing the remaining one- third funding necessary to carry out the project. There is a strong need for direct laboratory measurements of seismic velocities in the materials considered to exist in the Earth's deep mantle. Such measurements are required for the geological interpretation of seismic velocity-depth profiles reconstructed from earthquake and other seismic signals. Current high-pressure technology does not permit such measurements under conditions of static pressure, and shockwave techniques to be developed in this project offer the only means of obtaining them.